Development of a Variable Temperature, High Frequencey NMR System for Materials Research

9704225 Meisel This award provides support to develop a new variable temperature, high-frequency Nuclear Magnetic Resonance (NMR) instrument that will be housed in the new physics building that is being constructed on the Gainesville campus at the University of Florida. The device will have the capability of providing a wide range of magnetic field (up to 8.5 T with 10-6 homogeneity) in a 50 mm clear bore at room temperature. A broadband high frequency (5 to 350 MHz) spectrometer will be an integral part of the instrument. A variety of probes will be developed to allow NMR to span temperatures from 25 mK to 400 K. %%% This new instrument will serve as a tool to probe the microscopic electromagnetic interactions that are fundamental to our understanding of new low dimensional magnets (e.g. Haldane gap and spin-ladder materials) and novel magnetic systems (e.g. Kondo insulators and magnetic/nonmagnetic multilayers). In particular, the data provided by this instrument may not be obtainable by any other known experimental probe. In addition, when new extremes of magnetic field, temperature, and pressure seem to be natural extensions of the research, the experiments may be continued at the National High Magnetic Field Laboratory (NHMFL). The system (especially the spectrometer) is being designed in a manner which will make it compatible with the instrumentation used at the NHMFL at higher frequencies and magnetic fields. An important component of the proposed program is the education and training of postdoctoral fellows, graduate students, and undergraduate students. Members of the researcher team are trained in a variety of modern cross-disciplinary fields, including (but not limited to) cryogenics, electronics, ultra-high vacuum technology, NMR, macroscopic and microscopic surface science techniques, and new chemical synthesis protocols. When the junior researchers leave the group, they are prepared to tackle the heretofore unknown technic al and scientific questions of the future. ***